Travel: NSF Student Travel Grant for 2026 Association for Computing Machinery International Conference on Mobile Computing and Networking (ACM MobiCom)

This proposal seeks to fund US-based students to attend the 2026 Association for Computing Machinery International Conference on Mobile Computing and Networking (ACM MobiCom), which will be held in Austin, Texas, USA, on October 26-30, 2026. The ACM MobiCom is the flagship annual conference on Mobile Computing & Networking organized by ACM that attracts high-quality, forward-looking research contributions and provides a vibrant forum for technical and professional exchanges. The 2026 ACM MobiCom will expose selected students to cutting-edge developments in the field and enable interactions with world-leading researchers. Students will gain feedback on their ongoing work, broaden their academic perspectives, and build lasting professional connections.

This project supports students from US universities to attend the 2026 ACM MobiCom conference in person. Students will have the opportunity to present their work and be exposed to state-of-the-art developments in the field. They will also have the opportunity to interact with peers from institutions worldwide, meet with senior researchers, and participate in discussions that are likely to shape the future of the field.